NSF Young Investigator

9458329 Brubaker This award provides support to Dr. Rogers Brubaker under the National Science Foundation's Young Investigator Awards program. The objective of this program is to recognize outstanding young faculty in science and engineering, to enhance the academic career of recent PhD recipients by providing flexible support for research and educational activities, and to foster contact and cooperation between academia, industry, and institutions that support research and education. Dr. Brubaker has already made significant research contributions to the field of sociology, and she has the potential to become a leader in academic research and education. This award will allow the investigator to build on his existing research on comparative historical sociology and political and cultural analyses of nation states. His research interests are in the areas of international migration, citizenship, nationhood, and nationality. During the next few years he will extend his initial work in this area which focussed on Western Europe to resurgent nationalisms in Eastern Europe and the former Soviet Union. He will focus on the dynamic, and potentially explosive, triangular interplay between national minorities, the nationalizing states in which they live, and the external national "homelands" to which the minorities belong by ethnic nationality though not by legal citizenship. The project will be a sustained effort to try to understand the dynamics of nationalism before the Soviet Revolution relate to those that have emerged in the wake of the collapse of the USSR. This will include the long-standing histories and geopolitical patterns of conflict, and the impact of Soviet nationalities policy and other intervening events and variables. This research promises enlightenment about both politicized ethnicity and fundamental social theory. Through sustained comparative analysis of the closely interlocking political fields of national minorities, nationalizing state s and external national homelands, it seeks to grasp the interactive processes through which nationalist claims and counterclaims arise, intensify, and subside.